Creating Partnerships in Science and Research: Linking Science and Alaska Native Communities

The Alaska Native Science Commission was created to bring together research and science in partnership with the Native community. It serves as a clearinghouse for proposed research, an information base for ongoing and past research, and an archive for significant research involving the Native community. The Commission provides information, referral, and networking services for researchers seeking active partners in the Native community. It operates as a bridge to bring these communities together.